Structure and Function of Small Biological Molecules

This starter grant award to the University of California at Los Angeles supports the research of Professor Michael W. Deem. The work aims to develop powerful, biased Monte Carlo methods to explore the conformations of peptide molecules. The approach leads to an efficient, Boltzmann-weighted sampling of torsional degrees of freedom in these biological molecules. The method allows an examination of the conformations accessible to constrained peptides at body temperature and can address peptide transport in physiological environments. The approach can be used to computationally design inhibitors to protein active sites, a topic of interest to the pharmaceutical industry. This research will advance the fundamental understanding of the role that peptides play in regulatory processes within the body and the types of therapeutic agents that may interact with proteins.